TC: Medium: Collaborative Research: WHISPER - Wireless, Handheld, Infrastructureless, Secure Communication System for the Prevention of Eavesdropping and Reprisal

This project focuses on the design of an infrastructureless
communication system that makes it easy for people without expertise
in computer security to safely communicate with friends and family
members without being subjected to third-party surveillance,
censorship, propaganda, or reprisal. The primary goals of this work
are to (1) further open access to information people require to
educate themselves and (2) make sharing information easier.
Particular attention is paid to designing protocols that do not rely
on centralized control points, which are subject to attack. The
influence of patterns in human behavior on communication system
performance, energy efficiency, and security are being studied, and
the findings used to guide the development of better, user-aware,
communication protocols. Design and analysis of communication
protocols; defenses against side-channel attacks on portable
communication devices; distributed system architecture; and
energy-efficient software systems play central roles in the work.